Dissertation Research: Language Death in the Cajun French Speech of Houma, Louisiana

9303522 Valdman This dissertation research project will contribute significantly to scholarly knowledge in two fields in which the need for greater documentation is well known: the sociolinguistic study of language death, and the documentation and analysis of Cajun French (CF). The research will involve two techniques, participant observations in the CF community in and around Houma, Louisiana, and the oral administration of questionnaires and a translation task to 40 members of the community falling into four age ranges: over 60, 40 to 59, 20 to 39, and under 20. The question of language death in this community will be approached in two ways. First, the questionnaire is designed to determine the functional domains in which CF is still used. By administering it to representative members of the different age groups, it will be possible to identify changes in the functional distribution of CF. Secondly, the participant observation and the translation task are designed to study six specific linguistic variables as a means of identifying intergenerational differences in language skills. An additional time dimension will be added to the study in that some of the variables to be examined have been looked at in previous studies from the same areas of francophone Louisiana.